Workshop on QCD Vacuum Structure; Paris, France; June 1-5, 1992

A Workshop on the Quantum Chromodynamic Vacuum Structure will be held at the American University in Paris, June 1-5, 1992. Young American scientists will participate. Quantum Chromodynamics is the candidate theory of the strong nuclear force. Many basic questions about this theory are unanswered. Some of these, including the question of why particles carrying the nuclear analogue of electric charge are never free, and the question of how to treat the theory when the nuclear force cannot be regarded as a perturbation, will be discussed at this workshop. The participation of young scientists, from who needed new ideas may come, is important.